Moduli Problems in Algebraic Geometry

In this project, the investigator investigates two kinds of
moduli spaces in algebraic geometry, one is the moduli of
stable morphisms and the other is the moduli of stable sheaves.
Both moduli spaces are closely related to the research in Super-
String theories. Specifically, the investigator works on four
research directions. The first is on the effective construction
of virtual moduli cycles. The second is to continue working on
degeneration of the moduli spaces, including the moduli of stable
sheaves and stable morphisms. The third is to study open string
theory in Calabi-Yau manifolds and the last to study some new
conjectures on the moduli of stable sheaves.

This project is a research in algebraic geometry, a branch of
mathematical science. The investigator studies the
properties of certain spaces (called moduli space in mathematics)
that consist of objects that can be characterized by algebraic
properties. (An example is the roots of polynomials).
These spaces are important because they are part of the building
blocks of the Super-String theory in high energy physics, a
theory devoted to unify quantum mechanic and gravity. In the last
decade, research in Super-String theory raised many challenging
questions about these spaces, some remains open. This research
project will address some of these challenge.